Submicron Fiber Optic Chemical Sensors with Millisecond Response Times

9361640 Lieberman This Small Business Innovation Research (SBIR) project is in the general area of analytical chemistry and specifically in the subfield of submicron optical sensors. The Phase I studies will utilize a microfabrication technique capable of making optical fiber based light sources and sensors as small as 40 nm which will be applied to the demonstration of near-field optics (NFO) in microscopy and chemical imaging. These sensors will be small enough to measure chemical concentrations within a single cell in biological applications. Phase I objectives are to fabricate and test a working pH sensor with millisecond response time and 0.01 pH unit sensitivity, requiring only atto-liters of sample. A similar sensor will be developed for monitoring oxygen concentration. These sensors will be much less invasive, and much more chemically selective than existing sensors and will increase both the speed and reliability of microchemical measurements. %%% Submicron fiber optic chemical sensors should find their way into scientific, environmental, and medical testing laboratories and in the process and quality control aspects of the chemical, pharmaceutical and biotechnology industries. The small size of the sensors will result in cost savings and increased safety and their fast response time will increase the speed and efficiency with which chemical measurements can be made. ***